Conference: Co-designing Networks, Applications, Operating Systems, and Architectures for Large-Scale, AI-driven, Chiplet-rich Systems

Computing systems across all scales – from mobile devices to supercomputers – are increasingly transitioning to chiplet-based architectures and advanced 3D packaging techniques to sustain performance and energy efficiency gains in the wake of the slowing of Moore's Law. Concurrently, applications like Artificial Intelligence and Machine Learning are expanding at an exponential pace, placing unprecedented demands on compute, memory, and communication. While individual domains have begun exploring chiplets, hardware vendors have largely implemented these technologies in isolation. Without a coordinated, cross-layer transformation, modern systems will fail to fully exploit the potential of emerging hardware packaging.

This workshop brings together a diverse set of stakeholders from academia, industry, and the national labs to articulate key challenges and create a cross-cutting, near- and long-term actionable plan for the community to pursue to design efficient, scalable, chiplet-rich systems. The workshop will explore fundamental systems research challenges required to advance artificial intelligence and machine learning spanning semiconductor packaging, memory systems, communication fabrics, resource management, scheduling, operating systems, networking, AI applications, and quantum computing. By bringing together experts from these diverse domains, the workshop will identify new abstractions, interfaces, and system architectures that treat data movement and communication as first-class design principles across scale-in, scaleup, scale-out, and geographically distributed computing environments. The resulting roadmap will provide a coordinated vision for future research investments and help guide the broader computing community toward holistic solutions that maximize the performance, efficiency, scalability, and programmability of chiplet-rich systems. The resulting roadmap will help inform future research priorities, foster new interdisciplinary collaborations, and accelerate innovation across academia, industry, and government laboratories. By addressing challenges in AI infrastructure, high-performance computing, cloud computing, and emerging quantum systems, the workshop will contribute to technologies that support scientific discovery, economic competitiveness, national security, and technological leadership.